Collaborative Research: AMS 14C Measurements During the WOCE Indian Ocean Expedition

9413163 Quay This project is a contribution to the US World Ocean Circulation Experiment (WOCE) Indian Ocean Hydrographic Program (IO WHP). The PI will carry out part of the sampling for Carbon 14 on WOCE lines I8S and I9S, which are essentially meridional lines along 115 degrees east, and 85 to 95 degrees east between about 30 degrees South and the Antarctic Continent. In addition, the PI will participate with other WOCE scientists in analyzing, interpreting and publishing the data. Specific objectives include study of the deep water circulation in the western South Australia Basin, and the formation of subantarctic Mode Water.